NSF Young Investigator: Impacts of Disturbance on Soil Food Webs

Dr. Moore will compare soil webs from nine established and three proposed paired native and disturbed sites to detect pattern in the effects of anthropogenic disturbance of food web structure and function. The research will be coupled with a program where primary and secondary school teachers from U.S. school districts near the sites and student teachers at the University of Northern Colorado will be given summer research experience to augment their curricula.